NSFGEO-FAPESP: Ancient oceanic crust as clues to the evolution of plate tectonics on Earth

The geographic distribution of volcanoes, earthquakes and critical mineral deposits are controlled by plate tectonics. Less well understood is how long Earth has been governed by these tectonic rules. This project explores how plate tectonics has changed through geologic time by studying a suite of ~900-million-year-old rocks in Rio Grande do Sul, Brazil and comparing them to more recent deposits, which also host critical mineral deposits such as chromium, platinum, hydrogen, zinc and copper. This project serves the national interest of promoting the process of science by increasing understanding of how plate tectonic processes have changed over time and influenced the generation of critical mineral deposits. This project will further benefit society through promoting faculty and student international collaborations.

Plate tectonics is a unifying theory in Earth Science, underpinning our understanding of geologic phenomena, from natural hazards to the formation of ore deposits. This study will tackle questions of how plate tectonics may have changed by focusing on rare, ~900-million-year-old fragments of oceanic crust, which are preserved in Rio Grande do Sul, Brazil. Recently proposed tectonic models for this suite of rocks differ significantly to those for similar oceanic fragments in more modern (<250-million-year-old) equivalents, suggesting that there could have been an evolution in plate tectonic processes in the intervening period. The goal of this project is to examine and refine the existing tectonic model by establishing the specific parts of oceanic lithosphere represented by preserved rocks and comparing their tectonic signatures to modern equivalents. This will be achieved by a program of geological mapping, microscopy, geochemistry, mineral chemistry and geochronology, with this program carried out by students based in the United State with peers in Brazil.